Effect of High Pressure Gas Atmospheres and Anaesthetics on the Chilling Sensitivity of Plants

Changes in membrane fluidity at low, but non-freezing temperatures, are thought to be involved in chilling injury, a physiological disorder that effects many economically important plants. Recent research has shown that the chilling sensitivity of some susceptible plant tissue is reduced by exposure to ethanol, a mild anesthetic. Some anesthetics are known to increase membrane fluidity and thereby lower the temperature at which cold-induced phase transition occurs. In contrast, elevated atmospheric gas pressures reduce membrane fluidity and raise the temperature at which cold-induced phase transition occurs. Singular and combined effects of anesthetics and high-pressure gas atmospheres on symptoms of chilling injury (induced ion leakage, stimulated respiration, and stimulated ethylene production) will be examined in seedlings. Results will provide an understanding of how these two factors can be used to manipulate chilling response and ultimately an experimental approach to dissection of the mechanisms that lead to plant adaptation to chilling temperatures.